Seasonal and Spatial Variation in the Abundances and Trophic Role in Nano- and Microzooplankton in McMurdo Sound

McMurdo Sound is representative of large areas of the Southern Ocean which are seasonally or permanently covered by sea-ice. Inputs of microalgal carbon into McMurdo Sound are seasonally episodic and appear to be strongly influenced by inputs from sea ice microbial communities and advection from the Ross Sea. The hypothesis of this project is that the trophic role of nano- and microzooplankton reflects the episodic nature of primary production in this system. Using McMurdo Sound as a study site, the research will examine seasonal and spatial variation in: 1) the distribution of nano- (2-20 um) and micro- (20-200 um) zooplankton, microalgae and bacteria. 2) growth rates of microzooplankton. 3) grazing impact of nano- and microzooplankton communities on algae and bacteria. Dominant bactivores in this system will be identified and the use of dissolved free amino acids and detritus as nutritional sources for individual microzooplankton species evaluated. Results of this study will improve the understanding of the role of microbial food webs in the cycling of carbon in ice-covered regions of the Southern Ocean.